Using Planetary Science to Transform General Education Laboratory Courses into Research-Oriented Experiences Relevant to Modern Society

All undergraduate lab courses in the Department of Planetary Science are being completely revised, and new lab courses created, to deliver relevant science education to liberal arts majors satisfying their science requirement, science majors in other disciplines requiring a planetary perspective, and education majors preparing to teach science. Experiments coordinate the treatment of measurements--the traditional hands-on activity that distinguishes laboratory exercises from homework problems--and the models that scientists use to interpret data and explain how systems work. Students use realistic scientific tools to generate data and image-processing techniques to examine special collections of data. Students performing image-processing exercises use the same data and tools and make the same measurements and discoveries that scientists have made, thus reinforcing concepts far more effectively than would passive examination of the same material. The exercises are designed to give students the opportunity to explore a fundamental concept or process in depth and to discover its connections to other knowledge and experience. Most lab exercises use computers in the expectation that science and computer literacy levels reinforce each other. One immediate product of the project is an undergraduate lab manual, allowing experiments to be adapted at other institutions.